Structure and Evolution of the Sulaiman Foldbelt, Pakistan: Deformation Near the Strike-Slip Terminus of the Indian Plate

The western margin of the Indian lithospheric plate represents a transpressional foreland belt in an active tectonic setting. The plate boundary, marked by the left-lateral Chaman transform zone gives away eastward to a broad zone of foreland folding and thrusting in the Sulaiman region of Pakistan. This project will take advantage of surface and subsurface well data accumulated by the Hydrocarbon Development Institute of Pakistan (HDIP) to interpret the overall structure, mechanics, and tectonic evolution of the Sulaiman fold belt. Results will complement tectonic studies to the northeast in Pakistan in understanding Indian plate interactions with Asia.